Acquisition, Maintenance, and Authentication of Viruses in the Plant Virus Collection

This award provides partial support for the acquisition, maintenance, and authentication of plant virus collection at the American Type Culture Collection (ATCC). The ATCC plant virus collection maintains and distributes well-characterized plant viruses, viroids, antisera and molecularly cloned viruses. With this award, the ATCC will augment the various collection holdings according to the interests and needs of the scientific community, authenticate its holdings, upgrade documentation for all cultures and enhance the plant virus collection database, and provide advice and information on the proper usage of the cultures. The ATCC Plant Virus Collection is recognized as an official repository for plant viral germplasm by the American Phytopathological Society and the International Committee on Taxonomy of Viruses of the International Union of Microbiological Societies.